Conference: Support for Student Participation at the 16th International Conference on Mid-infrared Optoelectronics: Materials and Devices

The 16th International Conference on Mid-infrared Optoelectronics: Materials and Devices will
advance the state of knowledge in this area by providing a prominent international forum for
bringing together pioneers, experts, junior researchers, and students to interact and exchange ideas.
The topics of the technical program include materials growth, infrared device technology,
interband and intersubband physics and modeling, novel architectures based on new materials and
low-dimensional structures, non-linear technologies, THz materials and devices, infrared
optoelectronic systems, and applications of infrared optoelectronic devices. The technical program
will integrate oral sessions, poster presentations, and social activities, in a way that provides
numerous opportunities for discussion and interaction between researchers at all levels, from world
leaders to student researchers.

The conference will benefit society by advancing the development of materials and devices needed
for several engineering grand challenges, including infrared emitters and detectors for homeland
security, pollution detection, information and communication technology, and sustainable energy
conversion. The conference will advance discovery and understanding while promoting teaching,
training, and learning by bringing together students and researchers with broad areas of expertise to focus on
infrared materials and the novel devices enabled by these materials.